AISES Convening on Computer Science Research Infrastructure for Native-Serving Institutions

Given the underrepresentation of Native students, professionals, and faculty in the field of computer science (CS), American Indian Science and Engineering Society (AISES) believes now is a critical time to focus on strengthening CS research infrastructure of Native-serving institutions to move the needle on broadening participation. To this end, AISES will develop and host the Convening on Computer Science Research Infrastructure for Native-Serving Institutions, gathering faculty from a diverse set of Native-serving institutions to understand the issues they face, securing funding, and engaging students in CS research.